Advancing U.S. Interests in International Activities of the Biosciences

This action funds a 3-year continuing grant to the National Academy of Sciences to coordinate the U.S. National Committees for 5 scientific unions thus ensuring effective U.S. participation and leadership in the international bioscience community. The unions are the International Union of Biochemistry and Molecular Biology, the International Union of Biological Sciences, the International Union of Pure and Applied Biophysics, the International Union of Microbiological Sciences, and the International Union of Physiological Sciences. Also supported is DIVERSITAS, an international program of biodiversity science. While each National Committee undertakes unique activities, they have a common mission to advance global access to scientific knowledge and research resources and to foster networks and communication worldwide.